Collaborative Research: How do publication and funding filters shape the science that we do, and how we learn from it?

Science provides an extraordinarily powerful tool for investigating nature, and nature supplies an
endless abundance of research topics that are ripe for scientists to investigate. Faced with such
abundance, scientists must regularly choose where to place their efforts: which questions to pursue and
which to leave for another day, which results to prepare for publication and which to set aside, and so
on. When making these decisions, researchers face incentives that scientific funders and scientific
journals create through the peer‐review processes that funders and journals use to ensure quality and
rigor in the science they support and publish. Yet we understand very little about how the incentives
created by peer‐review in scientific funding and publication shape the scientific activity of individual
investigators, and how those decisions scale up to impact the aggregate knowledge that science creates.
In this project, we will develop new mathematical theory to understand how incentives created by
scientific funders and journals affect individual scientific activity and the subsequent production of
scientific knowledge. This theory will provide a foundation for evaluating proposed refinements of
funding or publication practices, and for understanding whether these changes will nudge the scientific
enterprise towards a more reliable and expansive understanding of the natural world.

We will focus on two questions. First, how do journals' publication decisions shape the ability of their
readership to learn from the scientific literature? Second, how do the incentives created by funding and
publication structures motivate scientists to work on certain projects and shy away from others? For
each question, we will ask how peer‐review filters function differently for basic versus applied research.
We will investigate these questions by building and analyzing mathematical models that incorporate
elements of information theory, economics, forecasting assessment, and statistics. In the long run, this
work will deepen our understanding of science as a social process by revealing how scientific institutions
generate incentives that shape the direction of scientific inquiry. More immediately, it will provide a
theoretical framework to explore how possible changes to the peer‐review process such as registered
reports or pre‐print servers may change scientists' collective process of learning and discovery. Finally,
we will develop an online module to help readers become savvier consumers of the scientific literature,
and we will share our findings with the editorial board of a leading biological journal.